Elastodynamic and Acoustic Response of High-Speed MechanicalSystems

Improved performance of a mechanical system means achieving less cost, while maintaining or improving the quality of the end product. Increased efficiency, longevity and reliability are also needed. Vibration level of the system and consequent noise radiation are two limiting factors on hiqher speeds and higher load to weight ratios. This project is a multi-disciplinary effort to examine the elastodynamic and acoustic response of high speed mechanical systems. It models the gross dynamic behavior and vibration response of the elastic components of the mechanism using Kane's method. The acoustic radiation formulation is based on the Helmholtz Integral. The model which evolves from this study will be a valuable design and research tool for use in the design, synthesis, optimization, and diagnostic studies of mechanical systems.